Conference on Nonlinear Partial Differential Equations, April 1999, Iowa City, Iowa

The conference is to bring together the world leaders
of mathematicians with interests in nonlinear
partial differential equations. We will focus on nonlinear
elliptic equations, motions of surfaces, fluids dynamics
and equations from mathematical physics. We expect
the meeting to be a place in which many discussions and
collaborations are initiated.

Almost all physical phenomena, such as those in Quantum Mechanics,
Fluid Mechanics and Superconductivity, are described in mathematical
terms by partial differential equations.
One theory of high temperature superconductor can be described by
a nonlinear elliptic equation. Analysis of this equation
will lead us to a better understanding of the physical phenomena.
In the last year of the 20th century, it is a good time to focus
our minds on what we have accomplished and on new challenges
that will face us in the next century. The aim of this conference is
to review the progress and, more importantly, to discuss new challenges
and new applications of nonlinear partial differential equations